Time-domain Atomistic Theory and Simulation of Quantum Dynamics on the Nanoscale

A team of researchers from the University of New Mexico (UNM) will investigate ultrafast processes in modern nanoscale materials and devices aimed at energy and optoelectronic applications. Significant efforts will be dedicated to developing and using artificial intelligence and machine learning tools to model, understand and control far-from-equilibrium dynamics in these materials. Further progress in optoelectronics, imaging, detection, photovoltaics, photocatalysis, as well as in the emerging spintronics, plasmonics, valleytronics and quantum information technologies, will require device miniaturization, as well as understanding dynamical behavior on very fast timescales. To advance these fields, the UNM team is developing theoretical and computational methods that allow new materials and dynamical processes to be modeled with atomistic precision and fine time-resolution. Their modeling closely mimics the key phenomena as they occur in nature, provides fundamental interpretation of the experimental data, and guides future efforts in the design of materials and devices, which are essential for advancing the technologies that are critical for our society’s future. The project will also provide research opportunities for graduate and undergraduate students in the application of sophisticated computation methods and thereby contribute to the development of the Nation's STEM workforce.

The University of New Mexico team will develop novel theoretical and simulation approaches for nonadiabatic molecular dynamics, implementing them within real-time time-dependent density functional theory, and investigating excited state dynamics in modern nanoscale materials and multi-component hybrids. Machine learning methods will be employed in all components of these simulations, in order to scale up their size and increase time scales. The balanced program combining theory and applications will provide a detailed, atomistic picture of the photo-excitation dynamics in the time-domain, and in direct connection and collaboration with experiment. The current methods development and implementation focuses on Lindblad and Pauli master equations with surface hopping rates, modified Ehrenfest-type methods, Liouville-space surface hopping approaches, and machine learning acceleration and analysis of nonadiabatic molecular dynamics. The applications include studies of excited state dynamics in metal halide perovskites, transition metal dichalcogenides and two-dimensional materials, and their hybrids with other systems. Such materials and systems find important applications in optoelectronic and energy applications. The work will advance the fundamental aspects of quantum dynamics and address practical questions in excitation and charge transfer on the nanoscale.